Portable Real Time Speech System

In the past five years researchers have made good progress in the areas of speech recognition and synthesis. Despite the inevitable delay between publication of new results and appearance of new technology based on these results, novel applications are invariably developed for these technologies. These applications, in turn, spawn new research questions. This work concerns the problems of real time speech recognition and synthesis for a person with a particular speech disability. Each year throat cancer, which is the fifth or sixth most common type of cancer in the United States today causes a large number of individuals to undergo a partial or total laryngectomy. These individuals are no longer able to speak in a normal fashion. Advances in VLSI have catalyzed the development of speech recognition and synthesis hardware. One of the popular speech aid devices is the "ElectroLarynx" produced by Siemens, Inc. It is a battery-operated, hand-held vibratory device which, when pressed against the throat of a laryngectomized person, creates sufficient "turbulence" in the throat to partially simulate the undifferentiated sound produced by a normal larynx. This sound is then converted into speech in the upper oral cavity. The problem is that a voice produced in this fashion sounds very mechanical; certain phonemes cannot be produced or are produced only marginally; and the speech can be difficult to understand. The practical goal of this project is to use current hardware and speech technology to build a device which will produce a high-quality, life-like voice in a very small package. The research goal of this project is to study the complexity of the voice produced by a partially laryngectomized person in terms of its speech recognition properties. This is a more difficult problem than standard speech recognition and thus, very high risk undertaking. The researchers will be attacking the engineering problem of designing a more practical speech aid device to replace the "Electrolarynx" and the research question of how the augmented speech of a laryngectomized person differs in speech recognition features from standard speech.